Research Experiences for Undergraduates

This project will develop the optics portion of an upper- level physics major laboratory course. Undergraduate physics majors will play an important role, under the guidance of the Principal Investigator, in developing the actual experiments and then in preparing the manuals and syllabi. This involvement of undergraduates will bring in an important point of view. The results will be shared widely with other schools.